Research on Novel Oxide Materials, Indo-U.S. Collaboration

Description: This project supports the U. S. component of a cooperative project by Dr. C. N. R. Rao, Professor, Solid State and Structural Chemistry Unit of the Indian Institute of Science, Bangalore, with Dr. John Honig, Materials Research Center, Purdue University. The research covers development of novel oxide materials with special focus on high temperature superconductors. The work includes synthesis of interesting oxide systems and examination of structure-property relations. It also includes the discovery of new classes of oxides with unusual electronic and magnetic properties, including the very inportant property of superconductivity at relatively high temperatures. This project is a renewal of research that Drs. Honig and Rao carried under earlier NSF grants. Scope: The collaboration of Professor Rao's team at Bangalore and Professor Honig's team at Purdue has been successful and resulted in a significant number of publications. Rao is one of India's most distinguished scientists. He has done pioneering research in numerous areas of materials and structural chemistry. It is likely that this project will result in significant advances in the field of new materials and better material characterization. Dr. Honig is a participant in a newly established Indiana Center for Innovative Superconductivity Technology, which was provided $500,000 for the first year of operation by the State of Indiana. His work with Dr. Rao would fit well with the objectives of that center, and with enhancing materials science research in the U. S.